Mathematical Sciences: Asymptotic Behavior of Solutions To Nonlinear Viscoelasticity With Fading Memory

The proposed project is to establish pointwise estimates for classical solutions to nonlinear viscoelasticity with fading memory, and to study the local existence, global existence and asymptotic behavior of weak solutions to the same model with special but important discontinuous initial data.